An Investigation into the Effects of Feedback, Attributions,and Expertise on Overconfidence in Marketing Management Prediction

Estimating the likelihood of future events is a critical aspect of making a variety of managerial decisions. A predominant finding in prior research is that individuals are overconfident. This Research Planning grant is to develop a research plan seeks to theoretically investigate why overconfidence occurs by drawing upon prior work on how cognitions are used in decisions. The focus of this research is on comparing the effects of evaluative and outcome feedback, the underlying attributional process that is invoked and the moderating effect of expertise. Four separate experiments will be designed. Each experiment will be comprise three stages and data will be gathered using an interactive computer program. The manipulated experimental variables will consist of evaluative feedback, nonevaluative feedback, attributions, and expertise; while there will be repeated measures on item domain. Subjects will perform the judgment task in the context of making a strategic plan. The research requires planning activities such as theory development, development of experimental stimulus, operationalization of independent factors, and identification of experimental procedures. The proposed research will contribute to existing knowledge on the overconfidence bias and isolate conditions when it can be reduced. It will foster research on overconfidence in an application context (i.e., marketing and strategic planning) where there are likely to be tangible benefits.